Non-Stationary Signal Analysis Motivated by the Auditory System

The auditory systems of humans and animals represent and process time-varying signals and make inferences on them. The acoustic energy from various sound sources impinges on our ears from different directions and the inner ears and the brain, together, seem to effortlessly separate them into independent recognizable streams. What kind of signal processing underlies this phenomenon? Is it possible to emulate this kind of processing in a computer and thereby improve machine-based speech recognition systems? This project constitutes a collaborative effort between auditory scientists and signal processing engineers to advance the state of the art in non-stationary signal analysis. Many of the existing non-stationary signal analysis methods such as time-frequency analyses are computationally complex and are not amenable to automatic feature extraction. On the other hand, various model-based signal analysis methods require detailed knowledge of the underlying signal generation mechanisms which is often not available. Taking cues from the initial stages of auditory processing, the investigators are developing an approach and associated signal processing algorithms for analyzing composite signals. Their approach to signal analysis is based on viewing signals as products of `elementary signals' rather than sums of sinusoidal signals as in traditional Fourier analysis. This view of signals is closely related to the theory of analytic functions. Thus, composite signals will be decomposed into component analytic signals which can be further decomposed into component analytic signals and so on. These signals are amenable to logarithmic processing and lead to a natural way of characterizing a time-varying signal interms of its positive instantaneous frequencies and log-envelopes. Overall the proposed approach is a non parametric way to characterize modulation properties of signals. This is to be contrasted with the traditional Fourier based methods where the emphasis is on po wer spectral analysis.